Eyes in the Sky: Applied Information Technology Project

This project creates a comprehensive program for students and teachers designed to prepare underserved minority teachers in the southwestern United States to facilitate student use of Geographical Information Technology (GIT) for research within existing STEM courses. "Eyes in the Sky" is a five-stage program that supplies this preparation by engaging high school teachers in 136 hours of professional development over 18 months. These teachers work with 120 students attending 20-hour summer workshops, providing IT training for students and experience for teachers with integrating IT into the classroom. The program provides effective, appropriate training for teachers enabling them to implement authentic research using expertise and resources from business, industry and government agencies.